Travel Assistance to attend Transducers '89 Conference at Montreux, Switzerland, June 25-30, 1989

This project is for the support and assistance of academic and government personnel (particularly younger researchers) who are engaged in sensor and actuator research, by providing either wholly or partially for travel, subsistence and registration fees at TRANSDUCERS '89, the 1989 International Sensor and Actuator Conference which is being held June 25-30, 1989 in Montreux, Switzerland. This conference is the premier meeting for review and discussions of new developments in the field of sensors and actuators. Those attending from the U. S. will be able to add greatly to the sensor/actuator engineering and scientific community in the United States.